ECS Workshop on Wireless Networked Sensor Systems

NSF ELECTRICAL AND COMMUNICATIONS SYSTEMS (ECS) WORKSHOP ON WIRELESS
NETWORKED SENSOR SYSTEMS: PROJECT SUMMARY
Wireless sensor network technology has expanded from its origins of over a decade ago to now
include many new communities in both research and applications. New technology requirements
have rapidly appeared along with many new applications. For example, whereas early sensors
focused on seismic and acoustic sensing channels for event detection, the new applications in natural
and urban environmental sensing now require new sensing channels for example, multispectral
imaging for detailed understanding of phenomena and chemical sensing for detection of biological
pathogens in water resources. Also, as applications have evolved, the requirements for precision
have increased as well. Further, new applications may emerge in the future where bounded response
time and distributed control present their requirements. While these new applications appear, the
long standing problems of scarce energy resources and unreliable, energy-intensive wireless
communication remain as challenges.
A broad set of research can be developed opportunities for addressing these new requirements.
In particular, the Electrical and Communications Systems (ECS) Division of the NSF can contribute
to a vision of joint development of hardware and software architectures that uniformly consider
sensing, signal processing, event detection, computing, and networking. This research can consider
the unique areas of ECS expertise, for example in the development of jointly optimized hardware
and software architectures, sensor systems, communication systems, and distributed, real-time
control methods.
This proposal describes an NSF Electrical and Communications Systems (ECS) Workshop on
Wireless Networked Sensor Systems. This is intended to engage Grantees of the ECS Division as
well as others to explore the new ECS opportunities, develop a series of new program concepts, and
ultimately create new research avenues on urgent ECS problems. The topics of this workshop will
include the examples of 1) Decentralized Detection and Control with Wireless Sensor Networks, 2)
Wireless Sensor Node and System Energy Barriers and Solution Pathways, 3) Energy-Aware
Networked Sensor and Instrument Systems, 4) Energy-Aware, Wireless Sensor Specific Hardware
and Software Architectures, and others to be developed.
The Workshop is proposed to take place over a two-day period in August 2003, and engage at
least 50 investigators. The Workshop schedule will include brief orientation/discussion periods
along with breakout sessions that are intended to not only produce guiding summary documents,
but to also promote the development of this new community.
Broad Societal Impacts: The wireless sensor research area has promising impact in science and
engineering disciplines including natural environmental science and environmental engineering,
industrial automation, physical security for homeland defense, and healthcare technology. Many
new challenges are rapidly appearing that must be solved to support the wireless sensor network
vision. This Workshop will provide guidance at many levels for the development of new
innovations and research pathways that will have broad impact.
Broad Education Impacts: Wireless sensor research has already demonstrated broad impact in
education through the development of new courses and the direct benefits of engaging
undergraduate and graduate student researchers with inherently multidisciplinary research programs.
This Workshop will create a set of new such opportunities specifically in the ECS area, thus
broadening the opportunities for identifying vital undergraduate and graduate student thesis research
objectives and programs. Workshop results will be immediately valuable for student researchers and
their advisors.